JIETSSP: Microwave Wireless Power Transmission with Retrodirective Beam Steering

Funding is requested for a three year program that will: 1) complete
development of a small-scale, portable solid-state retrodirective wireless
power transmission (WPT) demonstration system; 2) use the solid-state phased
array transmitter and rectenna (rectifier + antenna) developed in task 1 for
ground testing to determine the phase control of the transmitter. This
program will provide a path for the first US non-laboratory demonstration of
beamed power in which the transmitted beam will be controlled by a pilot beam
from the receiving antenna (a retrodirective system). The program will
demonstrate key components of an integrated microwave wireless power
transmission system: a phased array transmitter, rectifying receiving antenna
(rectenna) and the retrodirective control system. The transmitter will
operate at a frequency of 5.8 GHz and will consist of 4 panels, which will
allow beam steering in two dimensions. The array will consist of 640
elements, arranged in 10 subarrays with 64 elements in each subarray.
Microstrip patch antenna will be used for low cost fabrication, lightweight,
planar structure, and good performance. The patch antennas will be located on
one side of the ground plane and the microwave and electronic circuits will
be on the other side. The signals are coupled from the circuits to antenna
elements through equal-phase microstrips. The distributing microstrip
circuits and power dividers are fed by a coaxial line connected to the center
of the subarray. The beam control subsystem will use photonics to distribute
reference phase information. A circular polarized rectenna will be
constructed. Since the power density level at the rectenna array will be
fairly low for the proposed experiment, techniques using low breakdown
voltage diodes or multi-antenna rectenna elements per diode will be
investigated. The ability of the retrodirective phase control system to
maintain tight beam steering can be measured by the use of simple receivers
located around the rectenna. The measured performance will be compared with
theoretical predictions for error sources (phase jitter, phase bias,
mechanical misalignment, and amplitude variations) systematically introduced
into the system. Beam patterns including side lobes and grating lobes will be
measured.
The project will provide a practical demonstration of wireless power
transmission as an enabling technology for space solar power for both
terrestrial and extraterrestrial application. The program will be coordinated
and managed by the Center for Space Power (CSP) at Texas A&M University
(TAMU) and conducted by a team that includes researchers from the Department
of Electrical Engineering and the Johnson Space Center (JSC). NASA support
for this program will include laboratory and test facilities at NASA Johnson
Space Center.